Additive Effects on Soot Formation in Diffusion Flames

The experimental work underway will evaluate the effect of chemical additives on the generation of soot in flames. In particular, the mechanism of ion production will be investigated, in connection with its role in nucleation or coagulation. A variety of important additives are tested on three types of diffusion flames. The role of soot is critical in fires where it incapacitates and clings its victims; it is also a factor of spreading because its highly radiative properties create ignition conditions well ahead of the flames. It is also, of course, a byproduct of inefficient energy release in combustors. A good understanding of the ability of some chemicals to control soot would have a far-reaching practical effect in fuel and material design.